Quantum Chaos: Is There Any? (Physics)

This research seeks to use the theory of algorithmic complexity to show that quantum mechanics fails to exhibit chaos (deterministic randomness) in a variety of aspects.